Semi-Classical Analysis

PI: Maciej R. Zworski, UC-Berkeley. DMS-0200732

Abstract:

The main interest of the PI is the study of quantum mechanics from the
mathematical point of view, and of its many manifestations in the theory
of partial differential equations and geometry. Specific current interests are
the classical/quantum correspondence, resonances, geometric scattering, and
non-hermitian quantum mechanics. More precisely, the PI is interested in resonances,
which are mathematical objects modeling states which have certain frequencies of
oscillations (or rest energies) and rates of decay, such as unstable molecules or
classical system responding to resonant forcing terms. Despite a long tradition and a
lot of recent progress our understanding is still very limited. Current experimental
and numerical advances provide new stimuli for our studies. Another interest of the PI is
non-hermitian quantum mechanics, which deals with systems in which energy is not conserved.
That is almost always present when we localize a part of a system and the global
conservation of energy disapears. In a subtle way resonances already fall into this
category of phenomena. The mathematical problems present here are the stability of
eigenvalues and measuring the size of the resolvent of non-self-adjoint operators.
That leads to the study of ``pseudospectra'' which is then related to
many interesting phenomena in PDEs. Finally, the PI's interest involves mathematical
scattering. It replaces spectral theory for problems on non-compact domains, and in physics
almost all the data comes from scattering experiments. Many new things are constantly
discovered now, ranging from scattering on locally symmetric spaces to problems
related to conformal field theory.

Many of the phenomena discussed in this proposal are in fact more general: for instance,
electromagnetic scattering can be used to model quantum scattering, and its understanding
can benefit from the development of the classical/quantum correspondence.
The PI's work focuses on the search for general mathematical principles,
and the detailed study of specific examples is motivated by that.